Collaborative Research: Heavy Traffic Limit Models and Control Analysis for Wireless Queueing Systems--incorporating Long-Range Dependence and Heavy Tails

Buche, DMS-060608669
Ghosh, DMS-0608634
Pipiras, DMS-0608663

The investigators study the heavy traffic analysis in
wireless systems under novel phenomena of long-range dependence
and heavy tails. These phenomena are characteristic of current
wireless systems driven by data-intensive applications such as
multimedia, WWW, and real-time interactions. The heavy traffic
approach is a powerful way to analyze queuing systems at near
capacity, yielding complex, yet tractable limit models that
retain the essential features of the actual queuing system. But
most of the existing literature on heavy traffic analysis,
including wireless systems, is based on short-range dependent
(Markovian-like) models and light tails. In the case of heavy
tails only, the focus is on extending the perturbed test function
method, based on the martingale problem, for showing weak
convergence to a queuing model expected to be driven by stable
Levy motion. When long-range dependence characteristics are also
present, the focus is on developing a powerful alternative
approach based on the Poisson random measure representation of
traffic processes. In this case, weak convergence to a queuing
model driven by fractional Brownian motion is expected. The
power control problem associated with wireless systems is studied
along with the convergence analysis to the limit queue model.
This is done for given controls, as stochastic control analysis
for stable Levy motion or fractional Brownian motion is currently
undeveloped.

The focus of the project is on analyzing wireless systems
characterized by high capacity applications such as multimedia.
Such systems are ever more relevant with an increasing number of
wireless users (personal and military) and their demand for
data-intensive applications. For example, military applications
include the use of video in battlefield settings for conferencing
and providing information to troops. Personal applications
include movies, real-time interactions, and WWW data. In
particular, extensions of a developed approach, the heavy traffic
method, are used in the analysis. This approach supposes that
the wireless system is near its capacity, which is the case in
practice where applications make high demands on a limited
bandwidth. This assumption allows obtaining good models that
retain the essential features of the actual system while being
tractable. The models are useful for obtaining an understanding
of system characteristics that is needed for the design of an
efficient wireless network. Furthermore, obtaining these models
is an important first step toward developing stochastic control
methods for these emerging applications to optimize resource
allocations (for example, power) to the queues for transmissions.